California State University Science Teaching Development Project

This one and one half year project intends to establish a California State University (CSU) - wide collaboration among the colleges of science and the colleges of education, each campus (20) and system-wide, to coordinate and assist the reform of science teaching development programs (preparation and enhancement) appropriate for science education k-12. TRIADS of a scientist, science educator, and science teacher (elementary and secondary science teaching leaders) on each campus will function as collegial teams for improving university science teaching development (STD) programs. Current restructuring efforts such as the Scope and Sequence and Coordination project will be incorporated into teacher preparation and enhancement programs throughout the CSU system. In addition, a CSU-wide Collaboration Council for Science Teaching Development will be established. The project's primary focus is to improve the science teaching development programs (pre and inservice) for educating professional teacher able to function as change agents for ongoing renewal of science education (K-12).